Acquisition of Circular Dichroism Spectrometer

With support from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at the University of South Alabama will acquire a Circular Dichroism Spectrometer. This equipment will enhance research in a number of areas including a) CD spectroscopy of the solution structure of synthetic antifreeze polypeptides; b) conformational analysis of the heme-containing subunits of lumbricus hemoglobin; c) the role of sequence differences on the shape of the protein folding energy landscape; d) asymmetric catalysis; and e) exciton chirality investigations of isotopically substituted oligosaccharides.

Circular dichroism spectroscopy is an extremely useful tool in modern analytical chemistry. It provides a very reliable and sensitive method for assigning absolute molecular configurations. The results from these studies will have a strong impact in biochemistry and other areas.